U.S.-Vietnam Workshope on Integration of Hardware, Software and Human Engineering Applications

PHAM
9901107

This award will bring together academic and industrial engineers from the United States and Vietnam, as well as from Japan, to present current research and discuss future directions on integration of hardware, software, and human performability in industrial computing systems and their applications. The workshop will take place in Vietnam. Seven American participants will interact with several hundred Vietnamese participants. It is expected that this will lead to future cooperative research activities.